U.S/Japan Joint Committee Meeting on Building Codes; U.S China Research Protocol Meeting on Earthquake Engineering; and Japan/China Symposium on EQ Eng Res, Nov. 1-14, 1991

This is an international travel grant to support the Principal Investigator's participation in the "U.S.-Japan-China Trilateral Symposium on Earthquake Engineering", scheduled for November 4-11, 1991 in Harbin, China, and also in the U.S.-Japan Joint Committee Meeting on Seismic Codes scheduled for November 11-14, 1991 in Hawaii. The Trilateral Symposium is organized by the Institute of Engineering Mechanics, China. It will be implemented under Annex III of the U.S.-China Protocol on Cooperative Earthquake Studies, for which the Division of Biological and Critical Systems at NSF is the implementing agency of the American side. The Joint Committee Meeting is organized by Mr. Roland Sharpe of the Applied Technology Council of California and Professor M. Ozaki of Chiba University, Japan on behalf of the seismic building code communities in both countries. The Principal Investigator has an outstanding track record of successful research in earthquake engineering and hazard mitigation, and is an invited speaker of the Symposium and an active member of the joint code committee. The activity will advance the knowledge and technological basis for design and construction of buildings against earthquakes and will stimulate cooperative research in this important area.